Mathematical Sciences: 1992 SUNYA Topology and Group Theory Conference

This award provides partial support for the fourth annual SUNYA Topology and Group Theory conference, October 16-18, 1992. The conference concentrates on combinatorial group theory and low dimensional topology. The invited speakers are Martin Bridson, Andrew Casson, Marshall Cohen, Martin Dunwoody, Louis Kauffman, Steven Pride, and Richard Skora.